Symposium on Sensory Abilities of Cataceans, for the Fifth International Theriological Congress, Rome, Italy, August 1989.

This three-day conference will bring together a diverse group of international scientists to discuss and evaluate recent advances in understanding the sensory systems of dolphins and whales. These animals have remarkable abilities and sensory adaptations for sensory discriminations, echolocation, communication and navigation, and their cognitive abilities may be quite advanced. This symposium will be associated with the International Theriological Congress, which deals with all aspects of mammalian science, providing an unusually broad audience. The extensive participation of Soviet scientists at this symposium should provide new levels of interaction and facilitate a stronger global network of scientists working on cetaceans. The results of the symposium will be published, and should have a broad impact on scientists of sensory systems, behavior, animal cognition, marine biology, and ecology; it may have an impact on the global conservation movement as well, since these animals have become a popular symbol.